CAREER: Probing the Radical Nature of the SOHIO Process: Model Studies in Solution

Dr. Tracy A. Hanna, Department of Chemistry, Texas Christian University is supported by the Inorganic, Bioinorganic and Organometallic Chemistry program of the Division of Chemistry, National Science Foundation, for her work under a CAREER Award to study solution models for SOHIO oxidation/ammoxidation catalysis. The SOHIO process is used industrially to oxidize propylene to acrolein and to effect the ammoxidation of the same feedstock to produce acrylonitrile. The active SOHIO catalyst involves both bismuth and molybdenum. The objectives of this research are to investigate the formation and reactivity of bismuth(II) radicals and prepare bimetallic calixarene-supported models of the SOHIO catalytic components.

This research is integrated with undergraduate education, outreach programs, international collaboration and the inclusion of under-represented groups. In conjunction with this, both advanced and introductory chemistry courses at TCU are being reshaped and modernized. Primary components include the development and implementation of a "write-your-own" laboratory program in general chemistry, curricular reform, web-based course material development, and the incorporation of peer instruction.